Enhancing Mathematics through Technology Inservice

The purpose of the proposed project is to provide one week of intensive inservice during the summer of 1989 and follow-up supportive activities to 60 high school mathematics teachers. The goal of the inservice activities is to prepare the teachers to use a computer and calculator based approach to the teaching and learning of high school algebra, trigonometry, and analytic geometry. This approach is consistent with the new Standards for School Mathematics Curriculum and Evaluation of the National Council of Teachers of Mathematics. The techniques and technology used in the currently funded (Ohio Board of Regents, British Petroleum of Ohio, and NSF) Ohio State University Calculator and Computer Precalculus Project (C2PC) are almost directly applicable to other high school mathematics courses and will be used to focus the week's inservice activities. Most mathematics teachers have not used an approach that require them to use computer and/or calculator based graphing to enhance the teaching and learning of mathematics. There is a great need to provide mathematics teachers inservice supportive of the classroom activities and the approach to mathematics that is a consequence of the use of technology. This project has a budget of $103,335 and has cost sharing of 66%.